Collaborative Research on Learning Technologies: Building Virtual Places for Collaborative Science Simulations: A Heterogeneous Network Architecture to Support Distant Learning

9616611 Kozma, Robert SRI International CISE/EHR/ENG/MPS Collaborative Research on Learning Technologies: Building Virtual Places for Collaborative Simulations: A Heterogeneous Network Architecture to Support Distant Learning SRI International has been awarded $599,947 over 25 months for an effort to study collaborative learning within two learning communities: undergraduate chemistry students and science teachers involved in professional development. The results of the research will be used to design and develop a network-based learning environment that supports a range of asynchronous and synchronous collaborative interaction among distributed teams on heterogeneous platforms. The project will involve collaborations between social scientists studying social and task environments in learning, and computer scientists developing collaboration technologies that will support these environments.